Campus-wide Connection to NSFnet

The University of Illinois at Chicago (UIC) has several researchers who would benefit from access to supercomputing. They will be connected to the National Center for Supercomputing Applications (NCSA) at the University of Illinois at Champaign-Urbana, which connects to the National Science Foundation Network (NSFnet). Six Federally-funded supercomputering center can be accessed through NSFnet.